Mathematical Sciences: " Spectral Considerations and InverseProblems for Schrodinger Operators "

Professor Papanicolaou will use probabilistic and analytic methods to investigate certain questions concerning the Schroedinger equation. He will try to estimate the total size of the gaps in the spectrum of a Schroedinger operator with a bounded and smooth potential. He will study the dependence of zeroes of the Green's function on the spatial and spectral variables. He has defined a complex rotation number for multidimensional Schroedinger operators and will now investigate its geometric properties. In addition he will investigate the short time asymptotic behavior of heat kernels and apply the results to inverse problems. The Schroedinger equation finds its most useful application in nonrelativistic quantum physics but is also an area of intensive investigation from a pure mathematics point of view. In the realm of physics, this equation describes a tremendously wide variety of systems, from simple atoms and molecules to large aggregates like a piece of glass or a superconductor. The research described above will help in the understanding of such systems by providing a more thorough comprehension of the basic mathematics which describe these systems.